Education Research Grant: Examining the Post-Baccalaureate Decisions of High Ability Black STEM students

Howard University will conduct research that contributes to the basic understanding of how students navigate their undergraduate STEM education and eventually make the transition into STEM graduate study. While a number of studies describe the trends and status of African American participation in STEM careers, more work is needed to understand the mindset, thought processes and experiences of students who do pursue graduate degrees in STEM. We know little about the factors that lead students to pursue STEM graduate degrees. Nor do we truly understand the unique role of the HBCU experience that leads to that choice. Howard proposes to conduct a research study to describe how some students at Howard University, an HBCU, make choices about their post-baccalaureate careers. This study will lead to a better understanding of the common traits and characteristics of those students who choose to pursue STEM graduate degrees.

The intellectual merit of this proposed research lies in understanding how HBCU STEM undergraduates navigate their post-BS career choices. Through interviews, focus groups and surveys, we will identify the conceptual foundations students need in order to pursue graduate STEM education, seek to understand this transitional experience across gender lines, disciplines and citizenship and transform the findings and insights gained from this research into practice. Most importantly, however, we aim to contribute to the literature by expanding the knowledge base about this understudied group (i.e. African Americans at HBCUs) which will allow the HBCU STEM community to identify where additional research is needed and how to enhance the effectiveness of intervention programs. Although we are particularly interested in those students who pursue STEM graduate degrees, we will explore the full array of options that students have, including professional school (medicine, dentistry, business, law) and immediate entry into the workforce. The research team is led by an engineer with extensive education research experience and an educator with experience in STEM education research. For the last three years, this team has overseen a longitudinal study as part of the Center for the Advancement of Engineering Education (CAEE) funded by NSF. Preliminary findings from this study sparked the interest in examining career paths and the post-baccalaureate experiences of African American students in the sciences and engineering.

The dissemination goal of this project is to share the findings with a variety of audiences to enhance the scholarly discussion on two broad topics; increasing the numbers of minorities who pursue STEM graduate education, and increasing the awareness of the importance of conducting STEM-based education research in the HBCU community. The engineering and science community as well as the Scholarship of Teaching and Learning community will be interested in the results of this study. As a national leader in the on-campus production of African American Ph.D.s and the production of Black undergraduates who go on to earn Ph.D.s, Howard is uniquely capable and holds a social responsibility in creating these broader impacts.